CAIG: Multisource learning to predict chemical fate in complex environmental mixtures

This project will leverage advanced machine learning techniques to extract new information from atmospheric data and combine it in novel ways to improve understanding and prediction of air-pollution formation and properties. Reactions of carbon-containing gases in the atmosphere produce air pollutants such as aerosols and ozone which can significantly affect human health and agricultural production. With thousands of different gases in the atmosphere undergoing complex reactions, it is difficult to accurately estimate the behavior of these compounds. By employing novel machine learning methods, this research will improve our understanding of this complex chemistry. The project will bring together atmospheric and computer scientists, make models and data publicly available, and train early-career scientists at the intersection of artificial intelligence, weather prediction, air quality, and public health.

The project consists of four main tasks. First, multimodal machine learning models will be developed to predict physicochemical properties of organic compounds using various data representations, including text, numerical, and graphical inputs. Second, the extraction of chemical information from real-world atmospheric measurements will be enhanced using these models, focusing on chromatographic and mass spectrometric data. Third, the models will be applied to new and existing atmospheric datasets to estimate the fate of molecules and measure the rates of gas removal by precipitation, a key process in atmospheric chemistry. Finally, the developed models and datasets will be made publicly available and integrated into existing data analysis workflows, ensuring broad accessibility and utility for the scientific community. The project will be conducted primarily by an interdisciplinary team of graduate students from environmental engineering and computer science, supported by capstone projects led by undergraduate computer science students at a primarily undergraduate university. This approach will produce researchers comfortable with real-world applications of machine learning as well as a pipeline to technical careers for undergraduate students, creating a strong foundation for future research.